Middle School Teachers' Advanced Technology Education Project

This project is focussing on professional development of middle school science, mathematics and technology teachers. These middle school teachers are (a) receiving technology training (b) interning with Cleveland State faculty on real world science, mathematics, engineering, and technology projects, (c) attending follow-up content and pedagogy workshops, (d) implementing Middle School ATE professional development materials with their students, and (e) leading a year-long engineering challenge activity.

Concurrent with professional development efforts are curriculum development, the focus being to develop or adapt curriculum from prior ATE projects for a middle school audience, and to prepare materials that can be disseminated to institutions that prepare middle school teachers. The project is a collaboration between the Advanced Manufacturing Center (AMC) at Cleveland State University, Cuyahoga Community College, and Lorain Community College. Other partners include the Cleveland Municipal School District (CMSD), and CAMP Inc, a non-profit organization.